Industry/University Cooperative Research Center for Ultra-High Speed Integrated Circuits and Systems (ICAS) Tie Project with Washington State University

ABSTRACT EEC-9729254 KU Direct conversion receivers for wireless communication require less components and eliminate the need for bulky image rejection IF filters. This is joint "TIE" project linking the research capabilities of two Industry/University Cooperative Research Centers (I/UCRC) to study techniques for on-line adaptive digital compensation of the imperfections of analog components of mixed-mode transceiver circuits. The research site will be conducted at Oregon State University, the research site of the I/UCRC for Design of Analog Digital Integrated Circuits, and the University of California, San Diego I/UCRC for Ultra-High Speed Integrated